SBIR Phase II: Two-Wavelength Thermal Imaging Solutions to Materials Process Control Needs

This Small Business Innovation Research (SBIR) Phase II project will develop a prototype two-wavelength
imaging pyrometer. To monitor high-temperature materials processes, it uses an indium gallium arsenide (InGaAs)-based camera. Two-wavelength imaging uses intensity ratios to provide accurate temperature measurement of objects with emissivity variation. Single wavelength imaging sensors mistake absolute intensity changes, caused by emissivity variation, for temperature changes. Temperature is a central parameter in many high-temperature materials processese. Long production runs require temperature control for consistent product quality. This thermal imaging sensor is expected to meet industry needs for accuracy, low temperature operation, and low cost. Phase II will develop a 'research grade' imaging pyrometer for use in specialized laboratory experiments and a 'ruggedized grade' imaging pyrometer for testing in industrial facilities.

Potential commercial applications of the thermal imaging sensor (with its 1-2 mm sensitivity) are expected in industrial process control sensors for high temperature materials processing.